Traditional Ecological Knowledge of Beluga Whales: Local Documentation and Cooperative and Cooperative Application in Alaska

Traditional ecological knowledge (TEK) offers potential benefits in many
areas, including biological and ecological research, resource
management, and other facets of human interactions with the natural
world. Realizing these benefits involves linked steps of documentation,
analysis, application, and integration with other forms of knowledge.
While previous research by P.I. Huntington on TEK of beluga whales has
explored the semi-directive interview as a practical method for
documenting TEK, further research is needed to (a) explore the potential
for local documentation of TEK, (b) characterize the subsequent steps by
which TEK can be used, and (c) develop models for doing both.

The proposed project addresses three related questions:
Can the semi-directive interview methodology be successfully used or
adapted for use in locally-managed efforts to document TEK?
How is TEK used in the cooperative management setting of the Alaska
Beluga Whale Committee?
Can the results of (1) and (2) be generalized to other cases in Alaska,
the Arctic, or the world?

To address these questions, the project has four objectives:
Local Documentation of TEK: Conduct locally-managed documentation
projects, using the semi-directive interview method, on TEK of beluga
whales.
Application of TEK: Examine the structure, management, and conduct of
the ABWC and its meetings to assess the role that TEK plays.
Analysis: Compare the results of (1) and (2) with existing information
on other cooperative management bodies in Alaska, and other attempts to
use TEK both in Alaska and elsewhere.
Workshop: Hold a workshop in the final year of the project, to summarize
and synthesize what has been learned, to assess how these results have
contributed to understanding of TEK and its use, and to identify future
research needs.

This research will develop models for documenting TEK and for using TEK
to improve research on and management of natural resources. These models
will identify significant factors influencing the documentation and use
of TEK, including those that may influence the applicability of our
models in other settings.